Collaborative Research: Andean Climate History: Geochemical Proxies from a Holocene-Pleistocene Salt Core, Salar Del Hombre Muerto, Argentina

Abstract ATM-9632359 Lowenstein, Tim K. State University of New York - Binghamton Title: Collaborative Research: Geochemical Proxies from a Holocene Pleistocene Salt Core, Salar Del Hombre Muerto, Argentina This award supports a paleoenvironmental study of a 50+meter salt core from Hombre Muerto salar, a dry lake in the southeastern Altiplano of the Central Andes. The core is a register of the history of fill and desiccation of the lake, and is thus a record of the changes in hydrology and climate extending back through time. In South America, the climate history of the Last Glacial Maximum and the Holocene is controversial, and prior to the Quaternary, it is virtually unknown. Paleoclimate data extracted from this core will address the relative timing of northern and southern hemisphere climate cycles, and the temporal phase relations between precipitation cycles and temperature cycles in the Andes.